Segmentation and Recognition of Complex Temporal Patterns

Temporal information processing underlies various kinds of intelligent behaviors, including hearing and vision. A neural network framework for segmenting and recognizing complex temporal patterns is proposed. Processing of temporal segmentation is based on the idea that segmentation is expressed by synchronization within each segment and desychronization among different segments. Each segment becomes an input to the recognition network that explicitly encodes neighborhood or topological relations of local features of the input, and recognition is based on the graph matching method. To cope with problems embedded in time, the network to constructed codes time explicitly. Multiple temporal patterns are segregated into different segments that are activated alternately in the time domain. The network is able to recognize complex temporal patterns, and recognition is invariant to distortions of time intervals (time warping) and to changes in the rate of presentation . The network will be tested for both neural plausibility and computational effectiveness. Results of this project will provide new computational principles that might be used by the brain to process temporal segmentation and recognition. Also, they will provide effective methods for solving technical problems indispensable in real time continuous auditor pattern recognition.